Applying Learning Theory to Networking Problems

This project will focus on applying results developed by learning theory researchers to real-life problems. Such application-based theoretical work is important so that the learning models and problems studied capture as best possible the needs of real-life problems. Working to apply theoretical techniques to real problems creates a better understanding of the real-world problems and thus can help direct the future theoretical work, facilitating the transfer of results from theory to practice. Many networking protocols (as well as other system control algorithms) utilize one or more tunable parameters, e.g. thresholds and window sizes. Frequently the methods used to set or adjust the values of the parameters are ad hoc and are based on certain assumptions about the operating environment, e.g. assuming a particular distribution on the traffic patterns in a communication network. This project will develop framework based on formal learning methods for automatic parameter tuning in system control algorithms to study if better performance can be obtained. One such networking application this project will study is that of dynamically adjusting delays of acknowledgements in the TCP protocol. Delaying acknowledgements has two main advantages. First, it allows a single acknowledgement for more than one packet. Second, if a data packet is being sent in the opposite direction, then we can piggy-back the acknowledgement too much can increase the latency. Most TCP implementations used today employ some sort of acknowledgement delay mechanism. This project investigates several schemes to dynamically adjust acknowledgement delay, including ones based on the Weighted Majority (WM) algorithms and ones based on the Exponentially Weighted Moving Average (EWMA) algorithm. These schemes will be contrasted based on efficiency and efficacy , as well as proving theoretical results about them in terms of how well they respond to "volatile" TCP connections. That is, if the connecti on occasionally switches from sparse data transmission (where the goal might be to minimize latency, as in the case of an interactive application) to dense data transmission (where the goal might be to minimize the number of acknowledgements and latency is not as important, as in the case of a file transfer) and back again. Simulation results will be used to supplement the theoretical results. Applying learning theory results to this problem and other networking problems will then provide guidance in defining new theoretical learning models that better model real-life scenarios. This project will also carefully develop and study such new learning models.